Acquisition of a 200 MHz Solid-State NMR Spectrometer

Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to the chemist for the elucidation of the structure of molecules. Chemists can now study substances in the solid-state and thereby gain information in addition to that accessable from traditional solution studies. State-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The Department of Chemistry at Louisiana State University will use an award from the Chemistry Shared Instrumentation Program and the Instrumentation for Materials Research Program to help purchase a 200 MHz solid-state NMR spectrometer. The areas of chemistry that will be enhanced by the acquisition of the instrument include: 1) Solid-state deuterium NMR and ADLF spectroscopy: Applications to organometallic chemistry and polymers 2) Solid-state NMR of biomolecules 3) Applications of pulsed field gradient NMR to polymer dynamics 4) Characterization of chitin-protein complexes 5) Characterization of cement/hazardous waste systems 6) High pressure NMR to investigate capillary condensation from supercritical fluids